Energetics of Complex Inorganic Materials

9703922 Navrotsky This is the second year of a creativity extension. the grant has been transferred from Princeton University, DMR 9215802, to the University of California, Davis.